Dynamic Properties of Earth Materials

Ahrens 9506377 The studies of the Properties of earth materials at high pressures and high temperatures are focused on determining the chemical and phase composition of the Earth and its internal temperature profile, as well as understanding both the planet's evolution and its present internal dynamic processes. These objectives require the application of data such as generated by this program, theory, and a wide range of observational data for the Earth.